A Multi-Telescope Observatory for Undergraduate Astronomy

A new astronomical observatory at Middlebury to be equipped through this project will provide undergraduate students at all levels with an outstanding experience in observational astronomy. A professional quality, computer-controlled 16-inch reflecting telescope will be used to introduce beginning astronomy students to planets, stars, and galaxies. More experienced students will use this telescope for photometry and photography in conjunction with astronomy courses, while undergraduate thesis students will use it for research projects studying variable stars or developing new instrumentation. Three new 8-inch telescopes will be used in lower-level astronomy courses to give students a far greater opportunity for observational work than has previously been possible. The new telescopes and associated instruments will enrich the entire astronomy curriculum at Middlebury College. In addition, the new observatory will become a community resource through public viewing nights and programs for students in elementary and secondary schools.